High Energy Nucleus-Nucleus Interactions at 15, 60, and 200 GeV/nucleon (Physics)

A collaboration between the University of Minnesota, UM, Louisiana State University and the Institute for Nuclear Physics at Kracow, Poland will continue its studies of relativistic nucleus-nucleus collisions using nuclear emulsion as both target and detector. First, they will finish the analysis and publication of data from central collisions of O(16) with Ag-Br, in emulsion, at energies of 15, 60 and 100 GeV/n. Second, these studies will be extended to heavier projectiles, Si(28) at 15 GeV/n and S(32) at 60 and 200 GeV/n. This data will be important for evaluating a wide range of physics models. For example, those which predict the existence of a new form of nuclear matter called quark-gluon plasma. The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter at very high energies. The experiments use accelerators which provide the highest energy particles made in the laboratory.